NSF REU Site in Electrical and Computer Engineering

9619401 Dawson ABSTRACT The ten week Clemson Electrical and Computer Engineering Summer Undergraduate Research Experience (SURE) program will be composed of ten undergraduate researchers and over ten faculty mentors involved in individual research projects and professional development activities. Research projects are available in the following areas of research: Computational Electromagnetics, Digital Signal Processing, Wireless Communication, Mechatronics, Electronics, Power Systems, and Computer Architecture. The professional development activities will consist of seminars/workshops on technical writing, oral communication, graduate education, academic careers, industrial careers, and professional ethics. Each student will be required to present a mid-program oral presentation on the progress of their research. At the end of the summer, the student will participate in a poster session, prepare a written report and an extended abstract, and present an oral presentation on their research. Faculty-student interactions will be enhanced through a number of activities including five informal lunches highlighting presentations on research and graduate studies in electrical and computer engineering. ***